Mathematical Sciences: Form of Stationary Process, Common Subsequences and Phase Transition

This award will support the work of faculty associate Steven Kalikow. The proposed work is a mixture of probability and ergodic theory. The ergodic theory topics seek a way of expressing transformations, a way of constructing new transformations, and new approaches to the question of whether mixing implies threefold mixing. The probability topics involve a measure on stationary measures, phase transition, and finding the longest common subsequence of two sequences of random variables. The work is at the interface of these two disciplines. One application of the work is in the area of DNA sequence alignment, where individuals are looking for common subsequences of two DNA sequences.